RUI: Aquisition of Sterilizer (Autoclave) for in vitro Research

An autoclave (sterilizer) will be used for a wide range of biological studies, from plant tissue culture to the in vitro culture of mammalian cells. All of the research is to be conducted in the Carver Research Foundation Laboratory building by a team of fourteen researchers from several areas of the Tuskegee University campus. The single autoclave that served the researchers in the CRFL was 25 years old and had been repaired numerous times; it finally became inoperable. There is a small autoclave nest door in a science building, but it was too small for some projects, its major use was for classes, and it was often non-functioning. Therefore, a new autoclave was desperately needed to carry out research efficiently in CRFL.